Support for UNAVCO, Inc. and Pre-Plate Boundary Observatory (PBO) Planning Activities

0200066
Herring

Funds from this grant will support activities of the newly formed University consortium UNAVCO, Inc. that is a non-profit membership-governed organization, which supports and promotes Earth science by advancing high-precision geodetic and strain techniques such as the Global Positioning System (GPS). Part of the funds will support the operation of the president's office that oversees the financial management of UNAVCO, Inc. and provides a focus for community activities. The remainder of the funds will provide support for planning workshops and studies for the Plate Boundary Observatory (PBO), which will provide new insights into earthquake and volcano dynamics in the Western United States and Alaska. The four pre-PBO workshops to be held in 2002 will address the type of instrumentation and monuments to be used in PBO; the coordination of PBO activities in Canada and Mexico; the characteristics of the strainmeters to be used in PBO; and the management structure to be developed for PBO. The study to be funded will address the design criteria to be used in deploying the PBO instrumentation.
***